Kleene Algebra

Kleene algebra with tests (KAT) is a system for describing and
manipulating computations and assertions. KAT allows propositional logic
and the algebra of programs to be integrated seamlessly into a single
system that is remarkably powerful in expressive and deductive
power, yet computationally and conceptually simple.

KAT has many applications in computer science. In particular
it has recently been used to specify and verify various communication
protocols and common compiler optimizations. It does so more simply
and with less effort than more traditional systems such as Hoare
Logic.

In this proposal, we propose (i) to further develop the theory of KAT;
(ii) to produce a research monograph of significant scope giving a
comprehensive introduction to KAT; and (ii) to continue to investigate
the use of KAT in practical program verification.